Progressive Precalculus Problem Sets for High School and College

9354741 Anderson Progressive problem sets and innovative classroom exercises are being developed which can be used in both the high school and college precalculus classroom. These materials present concepts from various points of view, emphasize writing, use technology where feasible, encourage the use of collaborative learning, and stress the application of mathematics to other disciplines. Guidelines presented in the National Council of Teachers of Mathematics Standards, current research in ways people best learn mathematics, and compatibility with innovative calculus curricula are being used to evaluate the problem sets as they are developed. The materials consist of homework and in-class problems, as well as suggestions for their use, additional resources for schools without technology, and complete solutions. The problem sets are being pretested as they are developed; workshops for both high school and college teachers, designed to demonstrate the materials and generate feedback, are being held; and a year-long piloting project, involving one four-year college, one community college, and nine high schools, is being conducted. ***y